Australian Winter Storm Experiment (AWSE)

Understanding the factors that control production of supercooled liquid water in mountainous terrain is not only an important fundamental research question, but such knowledge is needed to advance techniques of enhancing winter-time orographic precipitation. During the Austral winter of 1988, various Australian agencies conducted a winter storms experiment to improve knowledge of winter extratropical cyclones interacting with mountainous terrain. The major research objectives of the experiment are to measure the mesoscale water budget near mountainous terrain during the passage of extratropical cyclones and to understand how this budget is affected by mesoscale cloud structure and kinematics and microphysical processes. The Principal Investigator will assist in analyzing the data collected during this project which includes state-of-the- art measurements from a microwave radiometer, pulsed lidar, rawindsondes, research aircraft and surface precipitation measurements. Specifically, supercooled liquid water and ice mass fluxes across a mountain crest will be calculated and related to mesoscale weather features. Results will lead to a better understanding of orographic precipitation formation processes. //